Knowledge, Motivation and Beliefs in Inquiry-Based Classrooms

9515061 Baxter As science education takes center in district reform efforts, questions are raised about the impact on student learning, motivation, and beliefs about science. This study attempts to address these questions trough a multiphase study integrating both large-scale survey data with in-depth descriptions of a sample of elementary classrooms. Phase one of the study proposes to collect data on fourth, fifth, and sixth-grade students (prior knowledge, motivation, science understanding, beliefs about science, and perceptions of the classroom) and their teachers (perceptions of the classroom) in a multiethnic, urban school district recognized for its K-6 hands-on science program. The intent is to examine the relationships among knowledge (prior and unit-specific, motivation and interest in science, epistemological beliefs, and perceptions of classroom climate for students varying on a number of personal characteristics (gender, ethnicity, socio-economic status) and learning contexts (science unit, classroom climate, grade level).